ITR/IM: The Million Book Project

The Million Book project is a multinational initiative to create a digital online archive of at least a
million books and manuscripts freely available to anyone at any time. It will enhance research,
learning and teaching by making a critical mass of scholarly information freely available to
read online. It will support the needs of citizens for practical information and recreational reading
as well as supporting scholarship and education. India, and possibly China, will supply the manpower
for scanning centers while the U. S. provides equipment and software. This pilot project supplies
the startup money for the first few scanning centers.